NMR Instrumentation and Support for Synthetic Chemistry

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in scientific and engineering research. The program provides support to strengthen the research environments and capabilities of institutions that have substantial minority student enrollments. Eligible institutions must also have graduate programs in science or programs in engineering. Howard University will use RIMI support to acquire a Nuclear Magnetic Resonance (NMR) spectrometer for use in the synthetic areas of the Department of Chemistry. Research studies will be done on organic synthesis, inorganic complexes, and the photochemistry of small molecules and radicals. This work will lead to the development of new reactions and reaction sequences that will contribute to our knowledge of synthesizing organic materials through novel procedures. Organic synthesis research will help strengthen the research infrastructure of a productive urban institution that educates minority students at the cutting edge of science. The principal investigator has performed funded research on synthesizing organosilicon compounds and is well qualified to direct this study. This project will encourage more minority students to choose research careers in chemistry.